A NEW TIMSS FOR A NEW CENTURY

This project seeks funds to begin serious planning for a fifth international study of mathematics and science to be conducted by the IEA. Boston College directors, Ina Mullus and Michael Martin, would begin planning meetings and discussions that would lead toward a reconceptualization of the frameworks for the assessments in mathematics and science that make up the Third International Mathematics and Science Study (TIMSS). The experience of the previous 2 assessments, and the needs of policy makers would be discussed at these meetings. The study would be enhanced to address leading issues in mathematics and science education. These plans would cumulate into a study to be conducted in 2003 or after.